Enhancing Quantitative Reasoning Using Visualization

Mathematical Sciences (21)

This project adapts materials and ideas developed by a number of research programs to promote visualization and reasoning skills of undergraduate students. It seeks to improve the breadth, quality, and relevance of quantitative reasoning and spatial analysis skills. The project responds to a completely revamped university-wide liberal studies program, as well as national trends in mathematics education. Under the liberal studies changes, students complete a foundational mathematics requirement by taking one or more of eight courses affected by this project. Project activities include installing computer display units in classrooms used by the target courses, developing visualization materials, examples and technology exercises in context, adapting materials from other projects, and interacting with faculty in non-technical areas to develop reinforcing activities. The project provides increased opportunity in these courses for visualization of mathematical and statistical concepts, exposition of concepts in disciplinary contexts, and experience with technology useful for quantitative reasoning and spatial analysis.